Dynamics and Radiation Field of Musical Instruments

9319567 Weinreich The present proposal is for work that generally continues our highly successful investigation of physical phenomena that underlie the functioning of musical instruments, with important ramifications for vibrating systems in general, sound production and control, wave propagation in irregular spaces, computer modeling, and nonlinear mechanics. A new feature is the emphasis on the dynamics of the driving mechanism of wind instruments, an example of nonlinear coupling between separate oscillators with many implications for the vibration of systems subject to nonlinear dynamical laws. ***